ARFMP: Renovation of Biology, Chemistry, and Physics Research Facility

This Academic Research Facilities Modernization Program (ARFMP) award from the Research Facilities Office provides funds to Florida A & M University for the repair and renovation of Jones Hall which houses that institution's research and research training activities in biology, chemistry, and physics. This building was constructed in 1940 and last renovated in 1974. The ARFMP grant of $600,000 and $771,320 provided by the grantee as cost sharing will be used to modernize these research and research training facilities. This project will address the need to improve the current research infrastructure by upgrading existing laboratories so that they can accommodate research in molecular genetics, ecology, biochemistry, superconductivity, and computational physics. A major focus of the renovation will be on replacing the heating, ventilation, and air conditioning (HVAC) system so as to eliminate the risk of damage to major instruments such as the electron microscope, spectrometers, x-ray diffractometers, and computers. This award contributes to the infrastructure of science and engineering by providing an improved environment for the conduct of research and for the training of quality undergraduate and graduate students. The proposed renovations will be beneficial to the training of a significant number of minority scientists at a rapidly growing institution with an high enrollment of Black students. Florida A & M's strong graduate feeder program which places baccalaureates of the University in a select number of major graduate institutions throughout the nation contributes both to the nation's manpower needs and to its science capabilities.